ENDOR and Optical Studies of Fractional S=1/2 Spins in S=1 Antiferromagnetic Linear Chains

This SGER project will use electron nuclear double resonance (ENDOR) and optical techniques to investigate novel magnetic behavior in one-dimension linear magnetic chains. A magnetic resonant ion is created in the chains by doping the chains with diamagnetic species. This S=1/2 species is delocalized in an unknown fashion over several metal sites in the chain. This delocalization will be probed by the ENDOR technique. The reslts will be of interest to theoreticians studying low-dimensional magnetic materials, an area of considerable current interest in condensed matter physics. Optical techniques will be used to try to disrupt the chains via excitation of a local diamagnetic metal ion configuration.